Doctoral Dissertation Research in Geography and Regional Science

The dramatic increase in tourism as an important dimension of the global economy has been manifest in many regions of the world. Much of the research on tourism in geography and other social sciences has focused on the tourists and on their impact on local areas. The analyses often have depicted local residents as seemingly helpless victims of much wealthier visitors from other parts of the world. Relatively little attention has been given to the attitudes of the local residents, however, especially in those locales where the residents have actively promoted tourism to boost the local economy. This doctoral dissertation project will explore the role of local initiatives to advance tourism in the Guizhou region of southern China. Ethnographic methods, including archival research, interviews with local leaders, and participant observation will be used to gather information at a number of tourist sites in and near the city of Kaili in southeastern Guizhou. Special emphasis will be placed on the processes through which local leaders are attempting to maintain the region's distinctive ethnic character and identity while facilitating economic development through more active tourism. This project will provide valuable new information and insights about the actions and attitudes of an ethnic minority group as it attempts to use tourism to boost its economy without harming its culture. Although specific information will focus on a single region in southern China, the results of this project should provide more general understandings useful in the analysis of other places. As a doctoral dissertation improvement award, this award also will provide support to enable a promising student to establish a strong independent research career.